Physics Alliances -- A Program for School-College Collaboration - (Continuation)

This project is designed to continue the work of the American Physical Society and the American Association of Physics Teachers in the establishment of Local Physics Alliances. A number of Alliances, which unite high school physics teachers and college physics faculty in a common effort, have been formed across the nation as a result of a previous NSF grant which supported four major workshops in different regions of the U.S. The current project will operate six more workshops over a 42 month period with an early effort on a major urban school district having a large minority population. In addition, an evaluation mechanism will be designed to determine the effectiveness of existing Alliances as a guide to the establishment of new ones. Cost sharing in the amount of $57,951 is 15% of the amount requested from NSF.